Support for U. S. High Energy Physicists to Attend XXXVIth Rencontres de Moriond Conferences; Les Arcs, Savoie, France

This proposal requests funding for carrying out two concurrently operating Conferences. One Conference addresses experimental QCD and high energy interaction topics. The topics of current interests are: Higgs boson searches, heavy flavor physics, search for particles beyond the Standard Model, QCD properties of W and Z production, low x physics and diffraction, heavy ion physics, and new trends in physics.

The other Conference deals with electroweak interactions and unified theories. The subjects are: Standard Model tests, searches for the Higgs boson, Heavy flavor physics, CP violation, Neutrino physics and search for neutrino oscillations, theories beyond the Standard Model.